Reactive Chlorine and Photochemistry in the Marine Troposphere

Proposed Mechanisms for the production of chlorine vapor from sea-salt aerosol in the marine boundary layer have important implications for tropospheric chemistry, but are as yet poorly understood. Acid-base desorption generates relatively unreactive HCl, whereas reactions involving non-acidic N gases and ozone and other selected reactive species produce highly reactive chlorine compounds which will initiate photochemical reactions in an analogous manner to OH. In addition, such reactions may represent and important tropospheric sink for ozone and other selected reactive species. This research is aimed at developing new measurement capabilities for assessing interactions of reactive chlorine with ozone and other selected reactive species, in the marine troposphere. The specific research objectives include: 1. Assessing sampling artifacts for species of interest and 2. Measuring major hypothesized product and reactant species involved in chlorine phase change as a function of phase and particle size.